Support of Conference "Chemical Engineering Education in a Changing Environment"

The Engineering Foundation Conference "Chemical Engineering Education in a Changing Environment" is a unique attempt at rapidly introducing high technology applications, such as the processing of electronic and photic materials, biochemical processing, the handling of hazardous materials and wastes, biocontainment, and electrochemical processing into the standard chemical engineering curriculum. This will be done by having invited speakers briefly introduce their technology areas, and then discuss one or two detailed examples of the use of chemical engineering fundamentals to solve problems in these new technology areas. These examples and their solutions will be in a form that chemical engineering faculty unfamiliar with these technology areas could nonetheless use directly in standard courses such as thermodynamics, fluid mechanics, mass transfer, kinetic and reactor design. Recommendation. This project provides financial support to allow chemical engineering faculty to attend the Conference "Chemical Engineering Education in a Changing Environment", and to prepare and distribute the Proceedings of this Conference. Support totalling $31,400 is provided by the Engineering Directorate and the Science and Engineering Directorate in FY 1987.